SBIR Phase II: High-Throughput Combinatorial Polymer Bioconjugates Synthesis and Application in Biocatalysis

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project includes advancement of the field of white biotechnology, which utilizes enzymes to create valuable industrial products. As biological molecules, enzymes are more difficult to manipulate than conventional chemicals and often need more extensive development before they can be adapted to industrial or pharmaceutical manufacturing. This SBIR project will demonstrate how enzymes' performance can be improved using stabilization with special synthetic materials known as polymers. Enzymes are characterized by precise, unique structure and function, which is in turn essential for their role in catalysis of complex chemical reactions. Synthetic polymers, on the other hand, despite being less precisely structured, can be rationally designed to withstand or respond to chemical, thermal or biological conditions. The synergistic fusion of enzymes and synthetic polymers results in an advanced enzyme with improved chemical properties, leading to new manufacturing processes for valuable products such as chemicals, biofuels, and pharmaceuticals; these processes should require less energy, utilize fewer hazardous reagents, and generate less waste.

This SBIR Phase II project proposes to develop a combinatorial synthesis device that can feed high-throughput screening of enzyme-polymer conjugates with desired properties (for instance, temperature, pH- or organic solvent stability). To date, only low-throughput synthesis and characterization methods have been applied to the preparation of enzyme-polymer conjugates, limiting development to only few types of polymer modification per protein and depending on stochastic guesswork to select the variants tested. Thus, in order to fully benefit from the diverse set of polymers currently available on the market, it is important to develop methods to scale the identification of optimally performing enzyme-polymer conjugates. This will be achieved through combination of high-throughput synthesis of enzyme-polymer conjugates and high-throughput screening of attained properties. The target application of the proposed research is focused on pharmaceutical biocatalysis. Application of a high-throughput method will not only result in faster research and development cycles, but also will accelerate our development of fundamental knowledge of identifying protein properties that can be achieved through polymer modification, thereby establishing this method for industrial applications.